SBIR Phase I: Rapid Application Development Architecture for Product, Process, and Cost Configuration Across Manufacturing Verticals

0339984

This Small Business Innovation Research Phase I project explores the feasibility of developing
software architecture for backward integration of the knowledge supply chain in the
manufacturing industry. It is well known that the decisions made during early stage in
design affect a significant portion of the products total cost. The research objectives are to (1) Develop prototype architecture of a tool that includes process configuration with part and tooling for casting initially. (2) Include a geometric analysis of the artifact . Show features in geometry that concern the process and tooling through a generic rules engine that can be used to interface with the geometry. (3) Integrate a hybrid cost analysis approach that can be used dynamically with the design to
come up with a method that can allow concurrent cost analysis with what if scenarios. (4) Eventually this tool will be generalized in phase II so that is extendable across verticals in manufacturing using a rapid application development (RAD) methodology.